EAGER: CHS: Collaborative Research: Analyzing Elder Care to Guide the Design of Caregiver Robots

One approach to expanding the availability of elder care and reducing elder care costs is to increase the number of elders who can live independently in their own homes which is referred to as "aging in place". This is an attractive option because elders prefer to live independently and report better health and quality of life when they do, and because aging in place can reduce the increasing costs of elder health care. However, aging in place still requires caregivers, and caregivers are in short supply. One approach to expanding the availability of caregivers for elders who are aging in place is to develop robots that can serve as caregivers in these homes. Research already suggests that many elders are open to this possibility, especially if it allows them to retain their independence. Furthermore, many elders report that for many tasks they would actually prefer to be helped by a robot rather than another human. As is the case for human caregivers, robot caregivers will be enmeshed in a larger complex social network and technical system beyond just the caregivers and the person who is being cared for. This larger context will need to be understood in order for robotic caregivers to successfully deliver the care that is needed, such as to know who to contact and with what information if the person that they are assisting is not following his or her usual patterns of behavior. This project will explore and describe how caregiving robots should function by analyzing the current form of caregiving in elders' homes, by creating a detailed account of current elder care practices, and by translating this account into design recommendations for caregiving robots.

The analysis will begin by describing the complex socio-technical context of current and future caregiving systems, specifically in terms of the work function and the work domain of the human or robot caregiver. Work function will be described independently of who or what will perform those functions. Work domain will be analyzed using a variety of techniques such as Abstraction-Decomposition Spaces (ADSs) and Contextual Activity Diagrams (ConADs). ADSs will map the relationships between a home's overall objectives and physical resources at several different levels of abstraction, such as by mapping the objective of providing a safe physical environment to different resources that are available to assist with transfers. ConADs will relate different work functions to different work situations, such as by relating the administration of medications to the appropriate time of day and location in the home. Based on these analyses of work function and work domain, the project will draft, refine, and validate formal descriptions of design requirements for caregiving robots.